Research Experiences for Undergraduates in Chemistry at Northern Arizona University

Professor Gerald P. Caple and other members of the Chemistry Department of Northern Arizona University are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. During the summer of 1990, ten (10) undergraduate students will spend ten (10) weeks actively engaged in a variety of research projects. Projects range from metal vapor synthesis of potential anti-cancer drugs to tracing the source of Tsegi Orange Ware (red) slip and (clay) paste using analytical chemistry. The participants in the program will be Native American Indians, many of whom are former participants in the Young Scholars Program of the National Science Foundation.